U.S.-Australia Cooperative Research: The Grain Boundary Structure/Chemistry of FeAl

9513186 Baker The award will support the travel of Dr. Ian Baker, Thayer School of Engineering at Dartmouth College, to enable him to conduct collaborative research with Dr. Paul Munroe of the School of Materials Science and Engineering at the University of New South Wales. The proposed work aims to further an understanding of the relationship between grain boundary structure and chemistry and the occurrence of intergranular fracture in FeAl, a material of some potential commercial importance. Poor ductility and brittle fracture are important drawbacks of intermetallic compounds. The focus of this study is on grain boundaries (GBs) in bicrystals. The effects of boundary character and constitutional disorder, changing the ration of Fe to Al, will be examined with a view to determining why some GBs fracture and others do not. The effect of ternary alloying additions will also be examined to determine why some alloying elements suppress grain boundary fracture. The work proposed will use a field emission gun scanning transmission electron microscope, FEG STEM, which is jointly operated by the University of New South Wales and the University of Sydney. The project brings together the complementary research interests of the investigators with access to specialized equipment.